Imaging a Natural Experiment in Drainage Divide Migration

Imaging a Natural Experiment in Drainage Divide Migration
Intellectual Merit - The objective of this proposal is to acquire and analyze highresolution
digital topography data for an ~18km2 field site in the Colorado high plains
that represents a natural experiment in scarp retreat and drainage divide migration.
The site offers a unique opportunity to document landform development and test
physically based landscape evolution theory under differential baselevel control. The
larger importance is two-fold. First, drainage divide migration is a fundamental aspect
of landscape response to tectonics, eustasy, and other forms of baselevel control.
Second, testing physically based landscape evolution models requires natural
experiments that involve a transient response to a known forcing factor, such as
baselevel. High-resolution, research-grade laser altimetry data are essential to
achieving these goals because standard USGS digital elevation data lack the necessary
resolution and accuracy to document the topographic signatures of the governing
processes, extract statistics for model-data comparison, and map incised surfaces. The
project is timely because the National Center for Airborne Laser Mapping (NCALM)
will launch a mission to acquire data from other sites in Colorado this summer. The
cost of data will be significantly lower if the data for the study area are collected
during NCALM's 2006 Colorado mission. The data will be analyzed to determine
characteristic topographic signatures, including slope and curvature maps and
frequency distributions, slope-area diagrams, area aggregation indices, and related
metics. They will also be used to reconstruct the former extent of a series of incised
valley fills and upland surfaces. These data, when combined with timing constraints
on cut and fill events, will provide a unique method for testing landscape evolution
models and their predictions about divide migration in response to differential
baselevel lowering. Exploratory iterative forward modeling using the CHILD model
will be used to identify process laws and parameter sets that can and cannot account
for the observed topography and soil thickness. Success in this project is expected to
seed a larger effort that will generate geochronology data, real-time process
monitoring, and sediment-yield estimates, resulting in a comprehensive data set for
use by the research community in testing other landform evolution models. Note that
in addition to the budget requested in this proposal, funds are also requested for data
acquisition by NCALM. If funded, the University of Florida will request a
supplemental budget for these expenses.
Broader Impacts - The broader impacts of this research fall into several categories.
The high-resolution altimetry data will directly support the dissertation research of a
Ph.D. student at the University of Colorado, thus contributing to teaching, training,
and learning. The project enhances infrastructure by providing the scientific
community with altimetry data and associated information for a valuable research
site; in addition to its geomorphic importance, the area encompasses a world-famous
terrestrial Cretaceous-Tertiary boundary section. Broad dissemination will be ensured
not only through the usual routes of publications and conferences, but also by
providing data and images to the Plains Conservation Center, a non-profit land
conservation and public education organization that owns the site, and to the Denver
Museum of Natural Science, which leads research on the K-T boundary section and
has a strong track record in research-based public outreach related to the geology of
the Denver Basin. Benefits to society include advances in our understanding of soil
erosion, transport, and deposition, which is applicable to land management.